Surfaces in 3-manifolds

DMS-0203680
Jennifer C. Schultens

The proposed research concerns the study of 3-manifolds. The notion
of a 3-manifold constitutes the 3-dimensional analogue of the
2-dimensional notion of a surface. The 2-dimensional notion of
surface is to be understood in a rather broad (and rather technical)
way. It includes the 2-dimensional sphere (that tends to be pictured
as all points in 3-space at distance exactly 1 from the origin), the
torus (often, jokingly, described as ``the icing on a doughnut''), the
Klein bottle, and many others. The study of 3-manifolds is
considerably more complex than that of surfaces. Surfaces are
completely classified, 3-manifolds are not. In fact, it is at present
unknown whether 3-manifolds can be classified (in an algorithmic
sense). It is known that 4-manifolds cannot be classified. The
research here endeavors to employ different types of surfaces lying in
3-manifolds and their relation to each other in a structural study of
3-manifolds.

The proposed research grows out of a study of the relation of Heegaard
splittings to Haken decompositions. It turns out that the lessons
learnt in that investigation have applications to a wider range of
problems in 3-manifold topology ranging from additivity properties of
the generalized bridge numbers of knots and additivity properties of
the width of knots to questions about the genus of a Heegaard
splitting that is a common stabilization of two given Heegaard
splittings. The methods for this investigation include a counting
technique developed by M. Scharlemann and the P.I along with the
notion of an orbifold Heegaard splitting. The methods further include
the notion of untelescoping of Heegaard splittings, Cerf theory, thin
position arguments, and the analysis of foliations induced by Morse
functions corresponding to Heegaard splittings or untelescopings of
Heegaard splittings. The proposed research also includes a strategy
to obtain a more structural theory of surfaces in knot complements.